Computer Aided Data Acquisition for the Mechanical Engineering Laboratory

In order to meet the needs of laboratory courses in mechanical engineering by introducing new and sophisticated data acquisition methods, additional equipment has been acquired to complement the single data acquisition system previously available. The needs of three laboratory courses are now being met, and the laboratory experiences of the students are modernized and updated.